ITR/IM - A Multilingual Gazetteer System for Integrating Spatial and Cultural Resources

This project will work to enable the design, development, and testing of standards for entries in gazetteers and explore the complexity levels of gazetteers required for research in the humanities and history of computing. Gazetteers are structured records about locations and their place names. Digital libraries research is increasingly concerned with the ability to link place names and map locations. Toponym-rich text and maps are lined effectively through the use of gazetteers. Making robust gazetteer information to users and contributors of digital libraries resources is key to achieving communicability among diverse digital resources, as indirect referencing can be employed. These resources can contribute to a variety of scholarly pursuits across a broad range of subject areas.